Study of e+e- Interacting with CLEO II

9508458 Csorna This is a proposal by two faculty in the physics department at Vanderbilt University to do to investigate heavy flavor mesons (beauty and charm) as part of the CLEO collaboration at a new tracking chamber for the CLEO III upgrade and to continue their investigations specializing in hadronic decays of B and D mesons. ***